Crystallographic Disorder in Surfaces and Thin Films

The proposed effort combines experiment and theory to investigate dynamic and static properties of surfaces, and thin films deposited on them, that are related to disorder, and to explore microscopic mechanisms associated with disorder such as chemical mechanisms associated with growth.